The 47th International Conference on Electron, Ion and Photon Beam Technology and Nanofabrication, Tampa, Florida, May 27 -30, 2003

This funded activity enables graduate students to attend and present their research at the 47th International Conference on Electron, Ion and Photon Beam Technology and Nanofabrication, 2003, to be held in Tampa, Florida, from May 27th-May 30st, 2003. In the fields of nanofabrication, microfabrication, electron and ion lithographies, x-ray lithography, particle-beam optics, and forefront applications of nanofabrication, this conference is preeminent. The requested travel aid will enable students to present their research to a high-level international scientific community. They will observe how scientists and engineers exchange ideas and information at conferences, and they will hear first hand presentations of up-to-date research results in nanotechnology. They will make personal contacts and learn of employment opportunities. In a special student breakfast, conference organizers will describe to the attendees how a conference program is put together.